Collaborative Research: Navigating from Vision to Change with Bio-MAPS

This project takes major steps towards concretely defining core concepts and competencies outlined in the NSF-AAAS report, Vision and Change, and provides tools to allow programmatic assessment in undergraduate biology education. The intellectual merit of this project derives from the development, validation, and field-testing of tools called Bio-MAPS (Biology-Measuring Achievement and Progression in Science). Specifically, four Bio-MAPS assessments are being produced: molecular and cellular biology, physiology and neuroscience, ecology and evolution, and an overall comprehensive measure. The research team is working with biology faculty at diverse institutions that span the breadth of higher education to develop a framework that outlines expectations for what students should know and be able to do at different collegiate levels.

Data from Bio-MAPS are expected to provide dramatic broader impacts and catalyze curricular reform by: 1) diagnosing areas in which students struggle despite instruction, 2) allowing two-year community colleges to evaluate how well they are preparing students for transfer to four-year institutions, 3) inspiring and directing faculty and institutional conversations about enacting change at the programmatic level, 4) helping administrators focus limited resources on aspects of the curricula needing revision, and 5) challenging faculty to re-design courses to scaffold student learning. Biology departments can also use Bio-MAPS assessments to demonstrate evidence of student learning for accreditation processes.

Many agencies now require evidence of student learning and data on how well programs meet the needs of diverse student populations. This focus on tangible learning outcomes requires that institutions have a means of quantitatively measuring student progression through a curriculum. Bio-MAPS can provide a means of measuring student progress through a curriculum. Other science disciplines may be interested in developing similar assessments for their students.

This project is being funded jointly by the Directorate for Biological Sciences and the Directorate of Education and Human Resources, Division of Undergraduate Education as part of their efforts to support Vision and Change in Undergraduate Biology Education.